Introduction of Laser Technology into the Undergraduate Chemistry Curriculum

The Department of Chemistry is purchasing a helium/cadmium laser and associated equipment for use several undergraduate courses. In the instrument analysis course, students perform a fluorescence spectroscopy experiment to become familiar with the capability and operation of the instrument. In the physical chemistry course, they carry out a Raman spectroscopy investigation as a practical application of group theory. In addition, the instrument is used by faculty to perform lecture demonstrations, and by students to perform additional experiments in several upper division courses.